Role of Host Genes in Root Nodule Development

The objective of this research is to study the influence of host plant gene expression on the development of endosymbiotic legume/ Rhizobium root nodules. The nature of this influence is less well characterized than that of the bacterial partner, in part because of the relative unavailability of specific plant mutants. In an attempt to circumvent this handicap, Lotus corniculatus will be transformed to dominant mutant phenotypes in certain nodulin genes by Agrobacterium rhizogenes introduction of appropriate antisense and ribozyme constructs. The effect of the resultant suppression of nodulin gene activity on nodule development will be determined in transgenic plants after infection with Rhizobium loti. In this way, the effect of mutations in the Lotus homologues of soybean nodulins 24 and 26 on establishment of the endosymbiotic compartment and on further nodule development will be determined; as will the role of the Lotus homologue of the early acting nodulin.75. This approach has the potential to determine the functions of all plant genes involved in symbiotic nodule development.